Acquisition of a Radiation Counting System

The acquisition of a radiation counting system will be utilized to further research in several areas including: steroid metabolism and its effects upon reproduction; the role of biogenic monoamines in metamorphosis regulation of glucose metabolism in premuscle of fasted and fed animals; regulation of the quiescent, resting states during the life cycles of invertebrates; and metabolic pathways involved in C3-C4 intermediate photosynthesis.